Seventh International Conference on Computational Harmonic Analysis

The Seventh International Conference on Computational Harmonic Analysis (ICCHA7) will take place at Vanderbilt University in Nashville, TN during May 14-18, 2018, in conjunction with the 33rd Annual Shanks Conference and Lecture. The conference website https://my.vanderbilt.edu/iccha7 contains a list of the conference plenary speakers and other conference information. Computational harmonic analysis is a fundamental tool for analyzing and representing information, and is especially motivated by modern applications where data has complex structure and massively high dimension. Applications of computational harmonic analysis include many areas of national technological interest such as data science, neural networks and artificial intelligence, medical imaging, radar signal processing, coding theory, and quantum computing. The conference will discuss the most recent theoretical breakthroughs, practical advances, and emerging directions in computational harmonic analysis. The plenary speakers include a diverse assortment of experts, and female and early career scientists are well-represented. An important broader impact of the conference is to support the participation of students, early career scientists, and underrepresented minorities; the conference will make a particular effort to invite and provide travel support to members of these groups. Travel support will be strongly prioritized to those without other sources of travel funding, so as to make the conference accessible those who would not otherwise be able to attend. This will contribute to expanding and diversifying the nation's talent pool and workforce in the mathematical sciences by contributing to the training of underrepresented groups in STEM fields.

Specific technical topics addressed at the conference will include, but are not limited to: compressed sensing, phase retrieval, convolutional neural networks, wavelets and multiscale transforms, frame theory, graph-based signal processing, time-frequency analysis, analog-to-digital conversion, signal and image processing, quantum computation, and mathematical learning theory. A main intellectual merit of the conference is to provide a venue to disseminate recent advances in computational harmonic analysis. The conference will consist of plenary talks, as well as shorter talks and minisymposia in parallel sessions. There will be numerous opportunities for mathematical interaction and collaboration among the participants. The conference will provide an interdisciplinary link between mathematicians, engineers, and scientists from other fields who are working on computational harmonic analysis.